CAREER: Coastal Antarctic Snow Algae and Light Absorbing Particles: Snowmelt, Climate and Ecosystem Impacts

________________________________________________________________________________________________

Part I: Non-technical Summary
The Antarctic Peninsula is one of the most rapidly warming regions on the planet. This 5-yr time-series program will build on an ongoing international collaboration with scientists from the Chilean Antarctic Program to evaluate the role of temperature, light absorbing particles, snow-algae growth, and their radiative forcing effects on snow and ice melt in the Western Antarctic Peninsula. There is strong evidence that these effects may be intensifying due to a warming climate. Rising temperatures can increase the growth rate of coastal snow algae as well as enhance the input of particles from sources such as the long-range transport of black carbon to the Antarctic continent from intensifying Southern Hemisphere wildfire seasons. Particle and algae feedbacks can have immediate local impacts on snow melt and long-term regional impacts on climate because reduced snow cover alters how the Antarctic continent interacts with the rest of the global climate. A variety of ground-based and remote sensing data collected across multiple spatial scales will be used. Ground measurements will be compared to satellite imagery to develop novel computer algorithms to map ice algal bloom effects under changing climates. The project is expected to fundamentally advance knowledge of the spatial and temporal snow algae growing season, which is needed to quantify impacts on regional snow and ice melt. The program also has a strong partnership with the International Association of Antarctic Tour Operators to involve cruise passengers as citizen scientists for sample collection. Antarctic research results will be integrated into undergraduate curricula and research opportunities through studies to LAPs and snow algae in the Pacific Northwest. The PI will recruit and train a diverse pool of students in cryosphere climate related research methods on Mt. Baker in Western Washington. Trained undergraduate will then serve as instructors for a local Snow School that takes middle school students to Mt. Baker to learn about snow science. Resulting datasets from Antarctica and Mt. Baker will be used in University classes to explore regional effects of climate change. Along with enhancing cryosphere-oriented place-based undergraduate field courses in the Pacific Northwest, the PI will recruit and train a diverse pool of undergraduate students to serve as instructors for the Mt. Baker Snow School program. This award will advance our understanding of cryosphere-climate feedbacks, which are likely changing and will continue to evolve in a warming world, while also increasing under-represented student engagement in the polar geosciences.

Part 2: Technical Summary
Rapid and persistent climate warming in the Western Antarctic Peninsula is likely resulting in intensified snow-algae growth and an extended bloom season in coastal areas. Similarly, deposition of light absorbing particles (LAPs) onto Antarctica cryosphere surfaces, such as black carbon from intensifying Southern Hemisphere wildfire seasons, and dust from the expansion of ice-free regions in the Antarctic Peninsula, may be increasing. The presence of snow algae blooms and LAPs enhance the absorption of solar radiation by snow and ice surfaces. This positive feedback creates a measurable radiative forcing, which can have immediate local and long-term regional impacts on albedo, snow melt and downstream ecosystems. This project will investigate the spatial and temporal distribution of snow algae, black carbon and dust across the Western Antarctica Peninsula region, their response to climate warming, and their role in regional snow and ice melt. Data will be collected across multiple spatial scales from in situ field measurements and sample collection to imagery from ground-based photos and high resolution multi-spectral satellite sensors. Ground measurements will inform development and application of novel algorithms to map algal bloom extent through time using 0.5-3m spatial resolution multi-spectral satellite imagery. Results will be used to improve snow algae parameterization in a new version of the Snow Ice Aerosol Radiation model (SNICARv3) that includes bio-albedo feedbacks, eventually informing models of ice-free area expansion through incorporation of SNICARv3 in the Community Earth System Model. Citizen scientists will be mentored and engaged in the research through an active partnership with the International Association of Antarctic Tour Operators that frequently visits the region. The cruise ship association will facilitate sampling to develop a unique snow algae observing network to validate remote sensing algorithms that map snow algae with high-resolution multi-spectral satellite imagery from space. These time-series will inform instantaneous and interannual radiative forcing calculations to assess impacts of snow algae and LAPs on regional snow melt. Quantifying the spatio-temporal growing season of snow algae and impacts from black carbon and dust will increase our ability to model their impact on snow melt, regional climate warming and ice-free expansion in the Antarctic Peninsula region.